NUE: Integrating Nanotechnology Education at CUNY Community Colleges

The primary goal of this Nanotechnology Undergraduate Education (NUE) in Engineering program at CUNY City College entitled "NUE: Integrating Nanotechnology Education at CUNY Community Colleges", under the direction of Dr. Ilona Kretzschmar, is to integrate nanotechnology education into the curriculum of two, highly diverse 2-year Community Colleges (CC) in the City Univesity of New York (CUNY) system-Bronx and Hostos CC-and to create a pipeline of research-trained students from these CC to the City College of New York (CCNY). This proposal is designed to build on the successes of a previously-funded NUE program at CCNY by extending the results of that project to the community college classroom.